Committee on Biology Teacher Inservice Programs.

The National Academy of Sciences/National Research Council is concerned about the state of science education in the Nation's schools. This project will address the issue of teacher enhancement for teachers of biology and the life sciences. The Board on Biology will convene an expert committee to examine selected inservice activities currently available to secondary-school biology teachers. Since biology is one of the most widely offered and most frequently taken courses in middle and high school, a focus on continuing education of biology teachers should have an impact on the quality of science education offered to most, if not all students. The committee will consider important recent advances in biology, links between content and pedagogy, the curricula and teaching materials currently available, and the possible use of new technologies to improve teaching and learning. Emphasis will be placed on collaborative projects and will consider ways to maintain linkages between teachers and scientists after the completion of the formal inservice training. Most importantly, the components of exemplary programs will be identified that can serve as templates for the development of future inservice programs for both public and private organizations. As such, it will contribute significantly to the set of materials on biology education already published and disseminated by the Academy.